Hands-On Astrophysics: Variable Stars in the Science/Math Lab

The excitement of astrophysical research and discovery is brought into the high school science and mathematics classes through a flexible set of student activities and projects on variable stars. The project includes a computerized database, of 400,000 measurements of brightness of 150 variable stars in five constellations over 25 years, from which students can deduce properties, processes, and evolution of these stars. Students can make additional measurements and discoveries from carefully selected time sequences of 125 35mm slides or from actual measurements from the night sky. A comprehensive student manual and instructional videos make the materials self-contained and easy to use. The teacher manual enables the instructor to adapt the materials to skills, objectives and local curricula. The material can be used in a variety of contexts: traditional mathematics and science classes at both the high school and college level, independent projects, summer institutes, and community science clubs. The material will be field tested in classes and refined through workshops with teachers. A newsletter and a video about amateur astronomers is planned.